Conformal Structures and Rigidity Properties of Anosov and Partially Hyperbolic Systems

ABSTRACT

The study of dynamical systems is a modern branch of mathematics which
originated from physics, mechanics, and differential equations.
Hyperbolic and partially hyperbolic systems have been one of the
main objects of study in the area of smooth dynamics. The exponential
contraction and expansion in these systems produces a chaotic behavior
with complex and stable orbit structure. This results in a rich theory
with applications in various areas of natural sciences and mathematics.
The PI considers Anosov and partially hyperbolic systems whose
contraction and expansion exhibit some conformality, i.e. distort
shapes only moderately. In higher dimensions, this condition is
essential for the study of regularity of the invariant foliations and
smoothness of the conjugacy to a small perturbation or to an algebraic
model. It may also yield remarkable rigidity not present in the
low-dimensional case. The PI plans to investigate further the role
of various types of conformality in the regularity properties. Another
goal is to study rigidity under weaker or alternative assumptions such
as smoothness of foliations and preservation of geometric structures.